Oceanographic Research Vessel Accessibility for Persons with Disabilities - Track RDE-FRI

Project Summary Proposal Section B
Objectives and Methods
Oceanographic research vessels (ORVs) are a critical element of science, technology,
engineering, and mathematics (STEM) research and education, but their access by
persons with disabilities (mobility, hearing, visual, and cognitive impairments) is
constrained by physical barriers (gangways, paths of travel about the vessel, vertical
access, berthing and toilet facilities, communications, and signage) and cultural barriers
(ignorance and attitudes).
With the participation of a diverse steering committee of persons with disabilities, vessel
operators, shipyards, ship designers, and academia, the project will facilitate the
removal of barriers by assessing the degree of accessibility of ORVs and the science,
technology, engineering, and mathematics (STEM) education programs they support,
and developing specific solutions for barrier removal. The results will be incorporated in
an OCEANOGRAPHIC RESEARCH VESSEL ACCESSIBILITY GUIDE of Best
Practices and disseminated to stakeholders.
Intellectual Merit
The project will advance knowledge and understanding of shipboard accessibility by
developing crosscutting solutions, applying lessons learned from the passenger vessel
industry to ORVs, and disseminating results to stakeholders. The PI is a licensed
Professional Engineer and naval architect, and an expert in passenger vessel
accessibility, who will use his expertise, experience, and comprehensive resources to
explore creative and original concepts for removing institutional and shipboard barriers.
Broader Impact
Broadening opportunities and enabling the participation of persons with disabilities in
oceanographic research and education is the essence of this project, which will
enhance the infrastructure for oceanographic research and education by removing
physical and cultural barriers. Results, in the form of lessons leaned and best
practices, will be disseminated broadly to enhance scientific, technological, and cultural
understanding and awareness of challenges faced by persons with disabilities. Society
at large will benefit by the transfer of project results to make the nation's 1,100 ferry and
excursion vessel fleet more accessible to commuters and recreational boaters.